Presidential Young Investigator Award: Application of Modern Geometrical Methods to Particle Physics

This project will focus primarily on the application of modern geometrical methods to problems in particle physics. It will cover such topics as the structure of anomalies which control the patterns of dynamical symmetry breaking and even the self-consistency of gauge theories, properties of superstrings that do not appear in the lowest order of perturbation theory, and, in particular, the theory of moduli space, supergravity, and Fermi-Bose equivalence on the world sheet of strings. This work is at the frontiers of the most abstract parts of modern elementary particle theory, so-called "string theory." It is not yet possible to predict the success this approach will have in explaining the fundamental interactions of elementary particles or, if it is successful, what theoretical and/or practical applications will follow.